Chapman Conference on Tectonics and Topography

This action provides partial support for a conference entitled "Chapman conference on Tectonics and Topography" to be held a Snowbird Utah August 31 - September 4, 1992 primarily to support student attendees travel expenses.